Production of Pure, Intimately Mixed Silicon Nitride/SiliconCarbide Powders by a Novel Gas Phase Combustion Synthesis Process

Fine, ultrapure, uniform, loosely agglomerated particles are desirable starting materials for advanced ceramics. Mixtures of silicon nitride and silicon carbide are particularly valuable. In this program, the use of silane/acetylene/ammonia flames to produce silicon nitride/silicon carbide powders will be studied. Specific tasks include: (1) Experimental determination of flame stability limits on a flat-flame burner for selected mixtures of silane, ammonia, and acetylene as a function of unburned gas velocity; (2) Thermodynamic determination of expected flame temperatures and product yields as functions of input compositions, pressure, and initial temperature; (3) Determination of the effects of operating conditions on the properties of the powder produced, specifically what operating conditions devermine whether the individual particles are a mixture of the carbide and nitride or whether the nitride and carbide are in separate particles; (4) Determination of the product properties (chemical composition, purity, particle size distribution, morphology); and (5) Interpretation of the results in terms of mechanisms and commercialization potential. High quality ultrafine silicon nitride/silicon carbide powders have a large potential market in the preparation of advanced ceramic materials via sintering or hot pressing. Progress in production of advanced ceramics is currently limited by the unavailability of a US-made high quality powder. In addition, an understanding of the mechanisms involved in this process will have broad implications for combustion synthesis (especially of mixed materials) in general.